Sedimentology of the Permian-Triassic Fluvial Sequence in the Beardmore Glacier Region, Antarctica

This award supports the study of Permian-Triassic fluvial deposits in the Beardmore Glacier region, Antarctica, which promises significant new insights into fluvial sedimentology, the evolution of the Transantarctic foreland basin, and the relationship of the Transantarctic basin with other Gondwana basins. Major objectives are: (1) to appraise fluvial channel and flood-plain depositional models; (2) to determine internal (e.g. channel processes) and external (e.g. climate, tectonic activity, and basin subsidence) controls on sedimentation; (3) to achieve a better understanding of the Late Paleozoic-Early Mesozoic Transantarctic basin including subsidence history, climate, and tectonic activity along the adjacent paleo-Pacific margin of Antarctica; and (4) to reconstruct environmental settings for Permo-Triassic floras and Triassic vertebrate faunas in conjunction with field parties engaged in paleontologic studies.